Behavior Systems and Learning: Modules, Modes, and Temporal Integration

This research stems from an ecological approach to the study of basic learning mechanisms, an approach based on the assumption that learning evolved and can be profitably studied within a functioning system of behavior. Specifically, the present experiments are designed to reveal the nature and number of the mechanisms involved in spatial learning. Do spatial learning and search vary with the type of cue used and the effects of reward? To what extent are there differences between the sensory-motor mechanisms controlling efficient search when rewards are used versus no rewards or different types of reward? The answers will determine the importance of considering the specific system context in analyzing spatial learning. The more general importance of this work involves establishing examples of the extent to which learning can be profitably studied within functioning systems of behavior (such as foraging for food, or seeking safety) rather than based only on very general mechanisms. If systems of behavior are important, it suggests that learning can be more effectively produced and controlled by understanding the function it serves rather than exhaustively analyzing the circumstances that produce it. In humans, the general importance of learning in determining behavior is large and unquestioned. What has not been so specifically dealt with is the extent to which learning follows somewhat different rules and determinants related to specific functions. Even in humans, learning about spatial locations and learning appropriate social behaviors may depend on different stimuli, motivational states, and mechanisms. The optimum conditions for promoting one sort of learning may well be different from the conditions promoting the other.